Independent Study in the Sciences Fellowship Program

This project is a 30 month program sponsored by the Council for Basic Education. The funds will provide stipends for 150 outstanding high school teachers of science who wish to do an independent research project on topics which connect science with other fields such as history of science, science and society, science and ethics and science and the environment. The teachers will be selected through a competitive national search process, provided summer stipends and paired with a mentor who has done scholarly work in the proposed field of study. Fellows will be selected on the basis of a submitted plan which describes the topics to be explored, explains the strategy for applying the results across disciplines and shows evidence of a collegial relationship with fellow teachers in other disciplines so that the likelihood of disemination will be enhanced. The independent study project must satisfy the criteria required by the Council for Basic Education for academic rigor and cross-disciplinary links. The Council for Basic Education will monitor each Fellow's progress throughout the study period and evaluate the effectiveness of the fellowship project in the classroom. The NSF grant of $600,000 will be matched by $406,029 from the Council for Basic Education. This is a matching amount which exceeds 67%.